Planning Grant for Development of Systemic Undergraduate Chemistry Curriculum

9455826 Amend This grant supports preparation of a proposal for a major systemic curriculum project that will place students at the center of their learning experience, and will encourage both faculty and students to (1) discuss and understand the importance of applied chemistry in our society; (2) participate in activities that encourage exploration and cooperative learning; (3) engage in a greater diversity of instructional strategies; and (4) exploit the role of new technologies as a means of implementing these approaches to learning. The curricular materials to be developed will be based on a three-part balance between (1) the factual aspects of chemistry (content), (2) the role of chemistry in our daily lives, and (3) the process by which information is located and discovered, and by which problems are solved. It is the intent of this project to develop a wide variety of resources which will draw students into all three of the above aspects of chemistry, and from which faculty may select material that best serves their own students and their interests and talents. Proposal development will focus on (a) content and concept sequencing, (b) appropriate use of technology, (c) educational strategies, and (d) a structure for dissemination, faculty workshops, presentations and publications.